Graduate Research Traineeships in Instructional Technology for Science Education

GER-9554526 King Traineeships will fund five NCSU graduate students working in Instructional Technology for Science Education. Trainees will enroll in either Physics Education (Physics), Science Education (Mathematics and Science Education), or Spatial Information Systems (Forestry) and complete new interdisciplinary seminars focusing on research n the frontiers of instructional technology in science education. Internationally recognized faculty from other departments who have conducted extensive research on electronic delivery of instruction will also participate in these seminars as well as teach other graduate courses in instructional technology. Trainees will attend professional research conferences and participate in NCSU's multiple regional and national service activities in science education, including the American Physics Association's Physics Academic Software Project, housed at NCSU; the NSF-and industry-funded Science House, which sponsors outreach projects to rural and African American K-12 students and NC's science and math teachers; and the GIS Literacy Project. Traineeships will assist NCSU in focusing its multiple research programs in the Colleges of Physical and Mathematical Sciences, Agricultural and Life Science, Engineering, Education and Psychology, Humanities and Social Sciences, and the School of Design that are integrating instructional technologies with cognitive science to develop truly innovative models of science education.